Presidential Young Investigator Award: Theory and Application of Non Linear Waves

This PYI grant will extend previous studies of coupled modulational instabilities and non-linear focusing of collinear waves to media with relaxing nonlinearities and to media which are Brillouin-active. The dependence of the transition from absolute to convective instabilities on external parameters will be determined and the evolution of the instabilities will be studied through analytic modeling and numerical simulation. Collaborations with experimentalists will be carried out.